Educational Innovation: Undergraduate Modeling, Simulation and Analysis

9712718 Simha, Rahul Leemis, Lawrence College of William & Mary CISE Educational Innovation:Undergraduate Modeling, Simulation and Analysis This CISE Educational Innovation award supports the development of a new course sequence in computational science for undergraduates. The program, entitled Undergraduate Modeling, Simulation and Analysis (USMA), enables qualified undergraduates to broaden their educational experience via small group interaction with faculty who are active researchers in modeling, simulation and analysis. The USMA program provides formal courses in these areas as preparatory work for research in computational science, encourages small-group interaction with research-active faculty via a mentored research seminar, offers an integrative interdisciplinary project based on an application from engineering or the sciences, creates a mechanism for students from Hampton University to participate in the USMA program and begins to incorporate courses in computational science at that institution, as well.